VPW: New Methodologies for Evaluating Interactive Technologies (Computer Science)

Since we lack fundamental means for evaluating the merits of non-traditional technologies, this research looks at extending currently impractical analytic techniques, such as conversation analysis, to more easily used measures of interaction effectiveness. In a laboratory experiment, face-to-face communication will be compared with two forms of mediated communication: audio-only and audio-plus-video. Two types of tasks will be studied: one with a strong visual-spatial component and one with a strong verbal-logical component. Task performance will be measured and questionnaires given. Using the results of the objective measures of effectiveness, systematic, non-anecdotal methods for conversation analysis will be developed using the videotaped protocols. The research will make a substantial new corpus of task-related interaction available to the scientific community. The project explores and evaluates the use of new techniques for measuring the effectiveness of interactive technologies, including teleconferencing systems, multimedia computing systems and portable office environments. This project furthers VPW program objectives to provide opportunities for women to advance their careers in science or engineering through research, and to encourage other women to pursue careers in these areas through the investigator's enhanced visibility as a role model on the host campus. The proposed activities which contribute to the second objective include: mentoring and counseling women students (in a department with no women faculty); teaching one course in interactive systems; co-leading the Interactive Systems Reading Group; advising students, and OGI as an institution, on policies and mechanisms necessary for the development of careers for women in science and engineering.